International Conference - Complex Systems

A major international conference on the study of complex systems will be organized. There is a new and growing effort to understand systems formed out of many interacting parts that display complex dynamic behaviors. These include physical, chemical, biological, social and economic systems as well as artificial (engineered) systems. Researchers from diverse disciplines and different perspectives are sharing knowledge, mathematical methods and insights in order to advance the effort in all areas. The new scientific effort to understand complex systems has attracted significant public attention because it addresses issues that include individual psychology, dynamics of social and economic change, and ecology that are of current concern. Thus it can serve as a vehicle for public awareness of the importance of science in society. Various conferences have addressed aspects of these growing efforts. However, this is the first major international conference to bring the wide diversity of researchers together, demonstrating the interdisciplinary but coherent nature of these efforts. The conference will be organized under the aegis of the New England Complex Systems Institute -- a new educational institution with participation of faculty from major academic institutions in New England.